Tuning Quantum Criticality in Materials with Coexisting Charge-Density Wave and Superconductivity via Controlled Disorder and Strain

Non-technical Abstract: Quantum materials may exhibit exotic behavior such as superconductivity, in which electrical current flows without resistance, or charge-density-wave order, in which the electrons develop a periodic spatial modulation. These states compete for the same electrons, coexist within the same material, and can even reinforce one another. Understanding this interplay is a central challenge in condensed matter physics, because it bears on how complex quantum phases emerge, how they can be controlled, and how they might be harnessed in cutting edge current and future electronic and quantum technologies, including quantum computers. This project examines how controlled disorder, mechanical strain, and chemical composition tune the balance between these electronic phases. This project unites research and education, engaging undergraduate and graduate students in advanced electronics and cryogenics, precision low-temperature measurement, materials characterization, data analysis, drafting the manuscripts, developing scientific communication and presentation skills. The principal investigator incorporates topic of quantum phase transitions into graduate coursework and contributes to national quantum education efforts, strengthening the broader goals of the National Quantum Initiative and helping prepare a technically skilled “quantum – aware” workforce.

Technical abstract: The project’s main goal is to study how two long-range quantum orders — a charge-density wave and superconductivity — coexist, compete, and give way to one another across the common phase boundary. There is significant range of overlap in the phase space of temperature, composition, pressure, and disorder. Both compete for the same electronic states on the Fermi surface. When the transition between them is continuous, it terminates at a quantum critical point at zero temperature. At this point and around it, quantum rather than thermal fluctuations dominate the behavior. Quantum criticality is governed by the universality class of a transition rather than the microscopic details of a particular material. This project tests this universality in different electronic dimensionality: three-dimensional Remeika stannides, quasi-two-dimensional dichalcogenides and kagome antimonides, quasi-one-dimensional trichalcogenides and rare-earth silicides. In this project, three independent nonthermal parameters are used to drive the system toward criticality: chemical composition, uniaxial strain, and controlled point-like nonmagnetic disorder introduced by electron irradiation, to find out if disorder can turn a discontinuous transition into a continuous one, moving the tricritical point toward absolute zero and thereby inducing a quantum critical point. The project relies on transport and thermodynamic measurements, and experiments using the tunnel-diode resonator frequency-domain susceptometer which measures the magnetic penetration depth with high precision.The topic of quantum phase transitions will be incorporated into graduate coursework in support of the national quantum education efforts, helping prepare a technically skilled “quantum – aware” workforce.